High Performance Network Connections for Science and Engineering Research - HPNC: Internet 2 at Pace University

This proposal seeks funding for an advanced network connection, in part, to facilitate research and education in the areas of immersive technology development, community-building with collaborative spaces using common wall technology, development of technologies for cluster-based computing in support of the Applications Service Provider (ASP) model of computing, development of middleware technology for advanced networking.